Special Projects: Biological Information Processing and Systems Workshop

EIA 0108973
Clemson University
R.L. Dooley

Title: Special Projects: Biological Information Processing and Systems Workshop

This is a workshop proposal in biological computation and data with an emphasis on new methods in single cell and multi-cell information processing, including hardware and systems aspects. The workshop is interdisciplinary, involving engineers, neuroscientists, cell biologists, computer scientists, chemists, and material scientists.